Studies of the Large Scale Structure of the Sun's Corona andMeter-Decameter Bursts

Using high spatial- and temporal-resolution images acquired with the Clark Lake multifrequency radioheliograph, we will study meter-decameter radio sources in the solar corona. Radio synoptic charts and quiet Sun maps will be used to study and model large-scale structures such as streamers and coronal holes. Impulsive burst observations will be used in conjunction with soft X-ray data to study several aspects of coronal mass ejections, including structure and plasma parameters, height-time evolution, the relationship of CME's, flare and shocks, and acceleration of particles at slow shocks. The overall aim is to use already existing data to elucidate the nature of impulsive ejections from the sun which ultimately impact the earth.